Implementation of a Coupled Air-Sea Numerical Model for Improving Operational Prediction of Landfalling Gulf of Mexico and Western Atlantic Hurricanes

9714412 Ginis The U.S. Weather Research Program (USWRP) is an interagency activity designed to perform and implement the research necessary to improve the delivery of weather services to the nation. Under this Program, the National Science Foundation, the National Oceanic and Atmospheric Administration (NOAA), the National Aeronautics and Space Administration and the Office of Naval Research are jointly evaluating and supporting research of high priority to the USWRP. Under the auspices of the USWR, the Principal Investigators will undertake a comprehensive numerical modeling/data assimilation program that has as its objectives to develop and test a coupled ocean/atmosphere tropical cyclone numerical model and to utilize this model to investigate the dynamical role of the ocean in rapid hurricane intensity changes near landfall. The primary components of the coupled hurricane/ocean numerical system are the operational hurricane forecast model developed at the NOAA Geophysical Fluid Dynamics Laboratory (GFDL) and the Princeton Ocean Model. These will be combined with new coupled initialization strategies and well-tested data assimilation techniques in establishing this coupled model as a trustworthy numerical model. New operationally available data sets will be a central component of the prediction system. The Principal Investigators will employ the coupled model to test a number of hypotheses concerning the oceans' dynamical role in rapid hurricane intensity changes near landfall. These include the effects of ocean eddies and strong ocean fronts (e.g. the Gulf Stream) in determining the track and intensity of the hurricane. If successful, this research will lead to improved operational predictive capabilities. This research will be conducted in active collaboration with NOAA/GFDL. ***